Advanced models and Techniques for Expert Interactive Retrieval Assistance

Enhancement, experimental analysis and evalution will be accomplished on an expert retrieval assistant named CONIT which seeks to capture and formalize some of the intelligence embodied in a human expert searcher. In particular CONIT assists users in developing a formalized problem description from which the system derives and executes a search strategy in one or more of 400 databases in three different retrieval systems. CONIT further assists the user in displaying document records and reformulating the search strategy based on search results and user desires. New assistance techniques to be studied include (1) ranking documents by estimated relevance based on retrieval match criteria; (2) several means for search evaluation based on estimates of recall plus time and cost parameters; and (3) selection of the most propitious search modification tactics for the current problem context. With these tools search strategy planning can be based on more rational, quantitative decision- making procedures as opposed to the more intuitive, qualitative procedures typical of current retrieval modalities. Analysis of experiments conducted will consider how well the particular techniques, and general retrieval models (subsumed under the term "smart Boolean"), achieve these goals. An improved human- computer interface will also be tested through conversion of the CONIT system from a mainframe to a workstation environment.